Condensate-Growth Feedback: Uncovering Reciprocal Regulation Between Phase Separation and Cell Growth

Living cells use specialized, membrane-free compartments called biomolecular condensates to bring cellular components together to perform specific cellular tasks. This project will provide critical information on the assembly of biomolecular condensates. This information will be used to design condensates that bring together the components of synthetic gene circuits and lead to expression of synthetic genes. This strategy for the highly controlled expression of synthetic genes has a variety of applications in fundamental biological research, as well as biotechnology and biomedical applications. This project will facilitate the training of the next generation of scientists and outreach activities will be conducted to increase the enthusiasm of high school students for synthetic biology and biotechnology.

This project will establish a quantitative framework for understanding reciprocal interactions between biomolecular condensates and cellular growth using integrated experimental and computational approaches. Engineered phase-separating gene circuits, live single-cell imaging, and microfluidic methods will be used to determine how cellular growth regulates condensate formation, dissolution, and complex phase-separation behavior. Quantitative experiments will determine how engineered condensates alter cellular physiology by redistributing biosynthetic resources, reorganizing intracellular spatial organization, and producing nonlinear growth responses. A multiscale computational modeling framework integrating stochastic gene expression, cellular growth dynamics, and multicomponent phase separation will identify the mechanisms governing condensate-growth feedback and predict emergent cellular behaviors. Together, these studies will establish mechanistic principles linking intracellular phase separation with growth regulation and provide broadly applicable design principles for engineering robust condensate-based regulatory systems in synthetic biology.